Fault-Tolerant Distributed Resource Location

James Aspnes
"Fault-Tolerant Distributed Resource Location"

Resource location is a fundamental problem in distributed computing.
Examples include such basic tasks as translating URLs into machine
addresses, mapping telephone numbers to individual telephones, and
searching for documents on the Web. Typical current solutions involve
maintaining centralized directories that become bottlenecks that
impair speed and reliability; such solutions are also unsuited to
peer-to-peer systems where individual machines come and go freely. The
research examines how to distribute directory information
holographically throughout the network, so that the costs of searches
are spread evenly, no specialized server machines are needed, and
resources can still be found even if a large fraction of the machines
leave the system.

The main technique is the construction of random graphs whose nodes
(representing resources and machines) are assigned coordinates in some
space based on their keys. Searching for a resource involves moving a
token from some initial node to adjacent nodes closer to the target
until the target is reached. Core components of the project are the
design of graph structures that provide the correct mix of
short-distance and long-distance edges for fast searching and the
design of local mechanisms for building and repairing such structures
quickly without central coordination.